Student support to attend the Hysteresis and Micromagnetic Modeling Symposium. To be held May 11-14, 2009 at the NiST Campus in Gaithersburg, MD.

Intellectual Merit:
The Institute for Magnetics Research of The George Washington University and the National Institute for Standards and Technology will host the Eighth International Symposium on Hysteresis Modeling and Micromagnetism on May 11-14, 2009 at the NIST Gaithersburg Campus. In this symposium, recent developments in the theory, applications and measurements of hysteresis, micromagnetics and spin dynamics phenomena will be presented. Hysteresis is a widespread phenomenon, studied most intensively in magnetism, but also found in areas outside of magnetics, such as economics, precision controls, mechanics, and many other fields. Micromagnetics is a nanoscale model
of ferromagnetic materials, which provides a complementary view of magnetism, and is important also for its role in modeling electron spin dynamics, which is the basis for the emerging technology of spintronics.

Broader Impact:
The symposium will provide a special occasion for engineers, mathematicians
and physicists to present and exchange ideas, methods and results. The support being sought under this proposal is to support part of the travel expenses of
graduate students to attend and participate in the Symposium.